RUI: Growth Chambers: Instrumentation for Botanical Research

This proposal requests funds for the purchase of growth chambers to be used in four diverse botanical investigations that are designed to address: the ecological importance and physiological consequences of phototoxic phytochemicals in plants that grow under high light conditions, the development and evolution of heterostylous breeding systems in plants, the physiological and developmental ecology of extreme shade tropical rainforest plants, and the involvement of extrafloral nectar production as a biotic plant defense and studies of plant reproductive biology. Support is recommended since acquisition of the growth chambers will greatly enchane the research capability and productivity of the four investigators.